Presidential Awards for Excellence in Science, Mathematics, and Engineering Mentoring (PAESMEM)

Mary L. Soffa
University of Pittsburgh

Prof. Soffa has been highly successful in personally mentoring graduate students. Of Prof. Soffa's sixteen graduated Ph.D. students, 50% are women. Of her master's degree students, twenty-four (53%) are women, one is African American, and one is physically disabled. She currently advises six doctoral students including two women. Among her mentees is a Swedish female that was the first woman to receive a doctorate in computer science in Sweden. Among her graduates, eleven have received prestigious pre-doctoral fellowships, two are full professors, three are associate professors, two are assistant professors, and one has received the NSF Young Investigator Award. While serving as Dean of Graduate Studies, she implemented an innovative program to recruit underrepresented students that increased their number by 100% in four years.